CSU/TTU Cooperative Wind Engineering Program

9409869 9411147 Mehta Meroney The Cooperative Wind Engineering Program (CWEP) enters the second five-year cycle of research activities undertaken by an interdisciplinary team of researchers from Colorado State and Texas Tech Universities working jointly. The cooperative research program will continue focusing on three main areas: wind load, wind engineering meteorology and wind flow around buildings. The combination of full scale field and wind-tunnel physical modeling will be merged in studies conducted in the three main areas and each will be integrated into the other two. On Wind loads, studies will continue in topics such as data acquisition and analysis, pressures on permeable surfaces, the influence of architectural and mechanical features, the spatial and temporal structural of wind loads, and on wind loading reliability analysis of low-raise buildings. In the area of wind engineering meteorology, instrumentation refinements and improved analysis of wind flow records especially of NEXRAD data, and the simulation of wind storms in the boundary layer wind tunnel are some of the topics to be studied. In the area of wind flow around buildings, the identification of the separation region near the surface of structures, the effect of the Reynolds number, the use of laser-sheet visualization to examine the time-dependent nature of the wind flow, the effect of building shape, roof line and other features, shelter and topographic effects, and numerical modeling are some of the topics to be studied. The results from the work done in these three main areas will be integrated throughout the duration of the program. Based on the results from this program the safety of populations at risk will improve and the private sector, such as the construction and insurance industries, will benefit because the vulnerability of new and retrofitted buildings and structures will decrease; the Federal, State and local administrators will continue to benefit because o f the development of new and improved mitigation measures; and the research community also will gain knowledge from the data, instrumentation and methods developed during the program. ***